Summer at WSU - Engineering Experiences for Teachers (SWEET)

This award provides funding for a 3-year standard award to support a Research Experiences for Teachers (RET) Site at Washington State University, entitled, "Summer at WSU-Engineering Experiences for Teachers (SWEET)." The program will provide a six-week summer research experience for twelve middle and high school in-service and pre-service math and science teachers as well as community college faculty from the Pacific Northwest (Washington, Oregon, Idaho, Montana).